Conference: Homogenization and Materials Science

An International Conference, "Homogenization and Materials Science", in
honor of the late Professor Ulrich Hornung of Bundeswehr University Munich,
Germany, will take place at the University of Akron, Akron, Ohio, during
September 15 - 17, 2000. The purpose of this interdisciplinary conference
is to bring together researchers from interacting areas of Materials
Science. In particular special focus will be paid to the latest scientific
and industrial developments concerning homogenization theory and methods.
Homogenization is a powerful mathematical tool for solving, both static (effective
properties) and dynamic (wave propagation, transport equations) problems in
inhomogeneous materials with periodic and random microstructure. This
includes prediction of mechanical and dielectrical properties of
composites, shape memory materials, materials undergoing phase
transitions, and polymeric composites. Solutions of these problems provide
guidance in the design of new materials possessing the specific properties
required by modern technological needs. The conference shall address both
modeling and computational aspects of these problems. This conference will bring
together the leading scientists from Europe and the U.S. who are working on
homogenization problems and applications in materials science.

Modern electronic and mechanical devices require materials with specific
properties in their design. For example, the automotive industry seeks
lightweight yet very strong materials. Such materials do not necessarily
occur naturally. Hence, these materials must be engineered from existing
resources. One approach is to form a composite material. A composite
material is made from a blend of other materials. Fundamental questions in
the design of composites are (1) what materials should be used to form the
composite, (2) how much of each material should be used in the composite,
and (3) how should the materials be combined to form the composite? In the
latter case the geometric patterns of the combined materials (think of
plywood) play an important role. Materials scientists and engineers try to
answer the above keeping in mind the specific properties required from the
resulting composite. Practical experience and trial and error approaches
are common means of obtaining answers. Within the past two decades many
new tools have been developed by the applied mathematics community to help
answer these questions. These tools fall under the heading of what is
called homogenization theory. One reason for holding this conference will
be to highlight the use of these new tools. A second purpose of the
proposed conference will be to highlight the formulation and solution of
new homogenization problems arising in materials design. For example, one
area that may further benefit from the utilization of homogenization tools
is polymer-based composites. Hence, the conference should help answer two
questions: (1) what should be the future directions in homogenization
theory based upon the current needs of modern technology (in short, which
problems should be solved), and (2) what is the best way of utilizing newly
developed mathematical tools to solve these problems in order to enhance
the use of homogenization methods in materials design? These questions
will be answered through both speaker presentations and a panel discussion,
which will summarize the current state of the subject and future trends.